Multimodality Diamond Nanoparticle Quantum Sensors for Plasma Technology

This award supports a new approach to measuring properties of plasmas, the ionized gases used in microchip manufacturing, medicine, space technologies, and fusion energy research. The new measurement technique will use microscopic diamond particles as durable, light-readable sensors. By enabling more accurate and complete measurements of important plasma properties, better understanding of plasma behavior will lead to improved plasma control in technological applications such as semiconductor manufacturing. The project will connect quantum sensing with plasma engineering, while education and workforce development will be strengthened through interdisciplinary training in quantum science, optics, plasma physics, and advanced instrumentation.

The project will develop and test a new class of nanodiamond quantum sensors as multi-functional probes for low-temperature plasmas, with the initial emphasis placed on radio-frequency capacitively coupled plasmas used in semiconductor processing. Nitrogen-vacancy centers embedded in diamond nanoparticles will be used as local probes of magnetic fields, charge environment, and temperature through changes in their optically detected fluorescence. Nanodiamonds will be introduced into a vacuum plasma chamber and will be interrogated using optically detected magnetic resonance and spin-relaxometry methods. Through this coupling of quantum technology with plasma physics, a minimally perturbative, multi-parameter diagnostic platform is expected to be established for plasma-model validation, semiconductor plasma control, fusion-edge diagnostics, and future quantum-enabled plasma systems.